DISSERTATION RESEARCH: The Use of Cladistic Techniques to Identify the Genetic Determinants of Phenotypes

The application, development and evaluation of tree building techniques, for the
detection of genetic associations will be examined. Evaluation of the performance of all
techniques developed in this proposal will involve both the identification of significant
associations of a trait with allelic variants of candidate genes and with combinations of
genetic markers at a genomic level. This proposal expands on nested clade analysis,
which is being more commonly implemented in many fields of research. This approach
will be critically evaluated under controlled conditions with varying parameters for the
first time in the context of identifying genotype/phenotype associations. The results of
this project will have broad implications on data analysis and interpretation in the fields
of ecology, evolution, developmental biology, genetics, epidemiology and medicine,
especially for those studies looking to identify quantitative trait loci. The production and
distribution of a computer program implementing this analysis will make it universally
available and accessible to researchers in all fields, especially those who are not familiar
with the techniques that it implements. Perhaps the greatest intellectual merit is in the
establishment of phylogenetic techniques as a reasonable method to evaluate certain
types of population data that do not require completely resolved individual relationships.